Quantum power operations in symplectic topology and representation theory

This project concerns symplectic manifolds, the main mathematical objects which we use to simultaneously model basic physical phenomena governing celestial motions and dynamics of everyday objects and geometric higher-dimensional shapes tied to polynomial equations. These high-dimensional objects are probed by studying different ways that surfaces can reside in them, and information from surfaces are assembled into processable data from methods of algebra. The investigator will study in this project the relationship of this data with the theory of numbers, aiming to develop new tools to solve mathematical problems with their roots in physics, notably from classical Hamiltonian mechanics and the quantum theory behind the standard model (or generalizations thereof). Advances in our understanding of these problems are expected in the long term to help us design a better theoretical framework to model and understand nature and to advance quantum science. The project will provide research training opportunities for students.

The counts of closed holomorphic spheres into sufficiently positive symplectic manifolds are defined over the integers, lending them to an arithmetic study. The project aims to develop the theory of quantum power operations, using such modular counts of holomorphic spheres to generalize the Steenrod operations and Adams operations from algebraic topology to the symplectic setting. The aim of the project involves a foundational aspect regarding the construction of these invariants and an applicative aspect concerning their relationship with quantum cohomology of quantized symplectic singularities. These quantum power operations can be used to formulate and tackle questions from symplectic topology and representation theory, involving periodic orbits of Hamiltonian diffeomorphisms, modular representations of quantized Coulomb branch algebras, and quantum integrable systems in the modular setting.